Some Studies on the Rank One Attractors and the N-Body Problem

This proposal is about the long term evolution of systems with dissipation,
especially the final states to which these systems evolve at the end. Intuitively,
one would expect a state of stable equilibrium, or a
state of periodic oscillation. However, as revealed by the modern theory of
dynamical systems, the real world is far more
complicated. In fact, a dissipative system may evolve to a state of chaos.
Thesechaotic states
are the so called ``strange attractors".
This proposal is on a mathematical analysis of rank one attractors,
a subclass of strange attractors. First we try to understand the geometric and
dynamic structure of rank one attractors, i.e., finding the underlining order of
these chaotic behavior. Second, we try to establish with mathematical rigor
that these ``strange attractors'' are observable and are frequently encountered
in different discipline of science and mathematics.

In the modern theory of dynamical systems, it is well acknowledged
that the most important and intriguing objects are homoclinic
tangles. We know that horseshoes occur inside a homoclinic tangle.
They are, however, only a relatively small part that is measure
theoretically ignorable. We also know that, in general, homoclinic
tangles are extremely complicated, perhaps so complicated that
comprehensive understandings are hopeless to acquire. This proposal is mainly
on the study of a specific nonuniformly
hyperbolic homoclinic tangle (rank one attractors).
First we hope to
offer a comprehensive understanding of the dynamical structure of
homoclinic tangles of this kind by using many of the important
mathematical tools (Symbolic dynamics, SRB measures and related
statistical properties for a few) developed in the past one
hundred years after the initial findings of the tangles by
Poincar\'e. Second we intend to show that, like the horseshoes,
homoclinic tangles of this kind commonly occur in the real world,
which lead us to applications.